Gas in Galaxies - Astrophysical Gas Dynamics

The dynamical and chemical evolution of hot gas in elliptical galaxies will be studied. Gas ejected from orbiting stars in these galaxies is heated by mutual dissipation and supernova explosions to about 10 million degrees Celsius. Late in the evolution of massive elliptical galaxies for current supernova rates, this gas is trapped in the deep potential wells of the dark halos and slowly cools into the centers of galaxies, emitting observable soft X-rays. Investigations of what combinations of dark halo structures and supernova rates are consistent with observed X-ray luminosities will be carried out. An evolutionary calculation of gas flow that matches observed X-ray luminosities would establish the total amount of gas that cooled into the galactic center. Knowledge of the total mass ejected from evolving stars provides a good estimate of the total stellar mass in the upper main sequence beyond the current turnoff. The total amount of matter that cooled into the galactic core is limited since it must not distort the observed stellar surface brightness. With this constraint, the evolutionary calculations can be used to infer quantitative information about the initial mass function of the galactic stars, the history of supernova activity, and the amount of primordial gas present after galactic formation or added afterwards. Preliminary calculations will be verified, based on likely stellar and supernova properties, that indicate massive ellipticals were swept clean shortly after formation by supernova- driven galactic winds which later turned into cooling flows with relatively little matter flow into the galactic cores. In addition, the chemical enrichment and abundance gradients in the winds and cooling flows will be calculated. These metallicity gradients will provide information about past supernova activity. These studies will also be extended to low mass and dwarf ellipticals and to hot galactic flows in spiral galaxies which are believed may tend to be winds rather than cooling flows.//